GEM: Development and Decay of Storm-time Ring Current

The investigators will study geomagnetic storm processes in the ring current using ground-based magnetometer measurements and data from satellites such as GOES, AMPTE, and Geotail. The study will focus on the transport and energization of oxygen ions and the excitation of ultra-low frequency waves and their role in ring current decay. The data will be used to determine if there is a one-to-one correspondence between the onset of the storm recovery phase and substorm onset, and to what extent the tail current contributes to mid-latitude geomagnetic indices. Ultra low frequency waves may be related to the decay of ring current ions. The study will contribute to our understanding of Space Weather effects associated with large magnetic storms